RUI: Lamprey Developmental Genetics and the Evolution of the Vertebrate Body Plan

0110540
Langeland

The overall goal of the proposed study is to take advantage of the unique
phylogenetic position of the lamprey, Petromyzon marinus, to address
fundamental issues of developmental and molecular evolution in the
vertebrate lineage. Lampreys are the simplest extant vertebrates, situated
phylogenetically between the cephalochordates (represented by amphioxus)
and the gnathostomes (represented by mammals, birds, reptiles, amphibians,
and fish). Morphologically, lampreys share several characteristics with
their gnathostome sister group, including multiple brain divisions, neural
crest and its derivatives, neurogenic placodes, pharyngeal arches, and a
cartilaginous endoskeleton, but they lack jaws and paired appendages and
retain a relatively simple axial morphology. Genetically, lampreys also
appear to be less complex than gnathostomes, having undergone fewer
duplications of developmental regulatory genes. Lampreys are thus a
perfect system with which to investigate developmental and molecular events
associated with early vertebrate evolution. Dr. Langeland has led in
recent efforts to establish lampreys as a viable system for comparative
developmental genetics. There are two basic thrusts to this proposal: 1)
to use gene expression studies in lamprey embryos to investigate
fundamental aspects of the evolution of vertebrate head patterning, and 2)
to use gene phylogeny studies to test whether duplications of select
regulatory genes accompanied vertebrate origins. The Langeland laboratory
will clone and characterize members of the goosecoid, Emx, and snail/Slug
gene families in P. marinus. These genes are excellent markers for three
key developmental innovations that accompanied vertebrate origins: the
establishment of the head organizer, the elaboration of rostral brain
patterning, and the acquisition and diversification of cephalic neural
crest. Comparative expression analyses of these genes during lamprey
embryogenesis will allow more precise reconstruction of developmental
events associated with vertebrate origins.
In addition, determination of the copy number of these genes in lampreys,
and analysis of their phylogenetic relationships with their gnathostome and
protochordate homologs, will provide important evidence concerning whether
widespread gene duplications, or even whole genome duplication, facilitated
vertebrate origins. This research will take place at a four-year
undergraduate liberal arts college. Extensive involvement of
undergraduates in all phases of the project will help maintain the strong
record of the host institution and of the principal investigator in
integrating research with teaching, and in preparing future Ph.D.s in the
life sciences.